Knowledge Systems Based on Autoepistemic Logic

The goal of this research is to investigate the applicability of autoepistemic Logic to formalization of various forms of nonmonotonic reasoning. Recent work in this area shows that nonmonotonic formalisms such as circumscription, default logic, and the negation as failure rule can be expressed in autoepistemic logic. Moreover, the corresponding autoepistemic formalisms seem to be more natural and elegent. To make the autoepistemic logic a practical tool for constructing knowledgebased systems the researchers will further investigate its expressive power and seek specialized efficient inference mechanisms. The work will focus on two domains in which nonmonotonic reasoning is frequently used: inheritance hierarchies with exceptions and reasoning about actions and time.